Detector R&D and Project Costs for CMS

This proposal will provide necessary R&D for a group of Universities participating in the CMS collaboration at the LHC. The University of California at San Diego group, will address design a trigger and data acquisition (DAQ) electronics; Johns Hopkins will be concerned with the silicon pixel and strip tracking devices and with computation and software design; the University of Illinois at Chicago will be concerned with the signal transmitting fibers of the scintillator-tile hadron calorimetry; Nebraska will participate in development of the luminosity monitor; Northeastern will be concerned with developing improved avalanche photo-detector (APD) devices to convert optical to electric pulses from the calorimeters, microstrip gas chamber trackers, and computing and software; Notre Dame will design devices to couple transmission optical fibers from the hadron calorimeters to their readout; Virginia Tech will participate in testing photodetectors. All groups will, as appropriate, will produce prototypes and engage in beam tests.